Workshop on Implications of Cognitive Science for Philosophyof Science, Minneapolis, October 26-29, 1989

Professor Giere has organized a workshop on the implications of the cognitive sciences for research in the philosophy of science. The Workshop is to be held under the sponsorship of the Center for Philosophy of Science at the University of Minnesota. It is scheduled to take place October 26-29, 1989. The idea behind the workshop is that the cognitive sciences have reached a sufficient state of maturity so that they can now provide a valuable resource for philosophers of science who are developing general theories of science as a human activity. The hope is that the cognitive sciences might come to play the sort of role that formal logic played for Logical Empiricism or that history of science played for the historical school within the philosophy of science. This development might permit the philosophy of science as a whole finally to move beyond the division between "logical" and "historical" approaches that has characterized the field since the middle 1960s.